CAREER: Biologically-Inspired Polymer Microeletromechanical Systems (MEMS) for Bi-Directional Neural Interfaces

Abstract
Ellis Meng

The objective of this proposal is to develop biocompatible microsystems that will seamlessly interface with neural systems. Neurons communicated using both electrical and chemical signals.
Microelectromechanical systems (MEMS) will be developed that mimic this cellular communication at biological spatial and temporal scales. Integration of microelectrodes and microfluidics into a single platform allows multi-channel bi-directional interaction with cells and tissue at a level of sophistication not possible with existing instrumentation. These microsystems will incorporate polymers that have been demonstrated to elicit minimal bioreactivity and biofouling. To achieve these objectives, my research group will develop the following tools:

Develop active, multi-channel microfluidic systems for spatially and temporally precise delivery and sampling of biological fluids, nutrients, and drugs
Develop stable, long-term, and biocompatible polymer devices with appropriate passivation and
isolation of electrodes for support of cells and tissue slices
Integrate electrical and microfluidic elements for localized dual-mode stimulation and recording from dissociated cells and intact tissue slices
These tools will advance scientific discovery in cellular biology and neuropharmacology. Additionally, they will enable new techniques for advancing neuroengineering and tissue engineering which include:

Dual-mode in vitro sensing of biological processes in neural cells and tissue slices
Localized biofeedback based on biological cues for controlled and sustained growth
In vitro studies on axonal growth and guidance in cells, tissue, and co-cultures
Implantable dual-mode microsystems for in vivo investigation of neural injury and repair

INTELLECTUAL MERIT
The central nervous system is the most complex biological system and arguably the most important. It is also the most difficult system to interface with. This CAREER plan will develop sophisticated dual-mode tools to enable investigation and manipulation of local neural microenvironment conditions. Such capability is not possible with the current state-of-the-art. The intellectual merit lies in the development of new tools that advance our knowledge of the cause-effect relationship between electrical and chemical signals in neurons communication. This microsystems interface technology will also be applied to other biological systems. The ultimate goal is to develop novel biomedical implants that provide bi-directional electrical and chemical cues for re-growing neural circuits and restoring lost neural functions.

BROADER IMPACT
Injuries to the central nervous system (e.g. traumatic brain injury, spinal cord injury, and stroke) result in devastating lifelong physical disabilities in millions of Americans and are presently incurable conditions. This research will enable new understanding of neural injury and lead to new treatments that promote neural repair. The direct benefits to society include the alleviation human suffering and reduction in health care costs. Integrated research and education activities are planned for the University of Southern California (USC) and its surrounding communities with emphasis in increased participation by females and minorities.